CAREER: Collaborative Memory

CCR-9876073
CAREER: Collaborative Memory
PI: Vincent W. Freeh

Latency to memory is ever-increasing and has reached the point where
conventional computer architectures are hitting a performance "wall."
Concurrently, several emerging technologies combine processing and
memory in a single device. It is expected that in the near future
nearly all integrated circuits will have both logic and memory, called
"processing in memory." This research creates "collaborative memory"
an active memory system that abstractly provides processing in memory.
It increases the end-to-end performance of applications and exposes
additional parallelism, and mitigates the effect of memory latency.
This research builds on the Modify-on-Access (MonA) file system, an
active file system that performs operation on behalf of an
application, which has been develop under the direction of the PI.
The research extends the MonA file system in two ways. One way is
closer to the microprocessor, in the virtual memory system, through
fine-grain collaborative memory operations visible to an application.
The other way is farther from the microprocessor, in an intelligent
peripheral device. This offloads computation from the main
microprocessor to the peripheral microprocessor. Together the two
extensions create a system that increases performance, exposes
implicit parallelism, and tolerates memory latency without new
advances in compiler technology or programming languages.